Conference: A unifying framework for dormancy across scales from natural, managed, and engineered ecosystems.

Dormancy is a widespread survival strategy that allows living organisms to temporarily slow growth and metabolism in response to unfavorable environmental conditions and to synchronize organismal lifecycles with favorable conditions. Dormancy is commonly found across microbes, plants, and animals, where it helps populations survive environmental stress, disease, and resource limitation. Dormancy also has growing relevance beyond biology, including in network science, engineering, manufacturing, and supply-chain distribution systems, where temporary inactivity or “standby” states can improve resilience, efficiency, and stability in these human-designed systems. Despite its importance, research on dormancy remains fragmented across disciplines, thus limiting progress toward a unified understanding of how dormant states emerge, function, and end. This award will support a series of multidisciplinary workshops that bring together researchers from biology, medicine, several engineering disciplines, mathematics, physics, and computer science to develop shared concepts and research priorities for the study of dormancy. By advancing foundational knowledge, the project will contribute to national priorities in Biotechnology, AI, as well as Advanced Materials and Manufacturing, while also supporting applications relevant to public health, agriculture, ecosystem resilience, and the bioeconomy. The workshops will broaden participation across disciplines, institutions, and career stages through accessible virtual and in-person events, and they will foster new collaborations, publications, and community resources that shape future research directions.

The project will convene two virtual workshops and one in-person workshop in Washington, DC during 2027 to address major scientific gaps in dormancy research across biological and engineered systems. Participants will work to develop a shared ontology for dormancy-related processes and terminology, identify common mathematical and computational models, and define conceptual and technical priorities for future research. The workshops will integrate perspectives spanning molecular biology, physiology, ecology, evolution, complex systems, network science, and several engineering disciplines from materials science to industrial optimization that will advance a unified theory of dormancy across scales and levels of organization. Activities will include tutorials from field leaders, presentations from early-career researchers, breakout sessions, and collaborative synthesis discussions. The project will also explore how dormancy principles can be applied to challenges in biotechnology, microbiome engineering, infectious disease management, ecosystem restoration, and resilient engineered systems. Outputs will include white papers, peer-reviewed publications, and new interdisciplinary collaborations. The Outcome will be to establish a coordinated research agenda for dormancy science and its applications